Postdoctoral Research Fellowships in Microbial Biology for FY-2000

This action funds an NSF Postdoctoral Research Fellowship in Microbial Biology for 2000.

The research and training plan is in the area of Biomolecular Processes and is entitled "Elements Required for Protein Synthesis in Archaea". This research focuses on post-transcriptional modifications of the archaeon Methanococcus jannaschii. This research provides an understanding of the role of tRNA modifications in the archaeal adaptation to extreme environments. A variety of approaches are used to identify modifications that are important for tRNAs in protein synthesis. The archaeal mechanism of protein synthesis and its differentiation from those of Eubacteria and Eukarya will be investigated.